Postdoctoral Fellowship: MSPRF: Mathematical Analysis of Non-Convex Machine Learning Problems in High-Dimensions

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Basil Saaed is “Mathematical Analysis of Non-Convex Machine Learning Problems in High-Dimensions”. The host institution for the fellowship is the Massachusetts Institute of Technology and the sponsoring scientist is Adityanarayanan Radhakrishnan.